Conference: Visions in Arithmetic and Beyond

This award provides funding to help defray the expenses of participants in the conference "Visions in Arithmetic and Beyond" (conference website https://www.ias.edu/math/events/visions-in-arithmetic-and-beyond ) to be held at the Institute for Advanced Study and Princeton University from June 3 to June 7, 2024. Those speaking at the meeting include the leading researchers across arithmetic, analysis and geometry.

The conference will provide high-level talks by mathematicians who are both outstanding researchers and excellent speakers. These will synthesize and expose a broad range of recent advances in number theory as well as related developments in analysis and dynamics. In addition to the talks by leading researchers there is also time allotted for a session on the best practices for mentoring graduate students and postdocs.